An Exploration of Tuberculosis Among Yup'ik Eskimos in Southeastern Alaska

0222428
Green

This small grant for exploratory research will enable preliminary research for a historical ethnography of tuberculosis among Alaska Natives from 1930-1990. Extensive consultations with Alaska Native communities and organizations will be conducted in accordance with the "Principles of the Conduct of Research in the Arctic". The principles include ethical responsibilities toward people and their communities.